MRI: Track 1 Acquisition of a Variable Pressure Scanning Electron Microscope for Nano and Micro-scale Imaging, Elemental Analysis and Materials Science at Idaho State University

Recent advances in microanalysis for earth, historical, and forensic sciences recognize that the characteristics of materials observed with the naked eye have corresponding structural features at micro and nano scales of observation that fuel novel research questions, support applied science that tackles real-world problems, and reveal unexpected domains of inquiry. Acquiring a state-of-the-art scanning electron microscope (SEM) with elemental and structural analysis capability at Idaho State University (ISU) will advance microanalytical research capacity by replacing outdated and end-of-support equipment and strengthening the university and region’s analytical infrastructure for a new generation of material-focused scientists. Consistent with current best practices for institutional infrastructure, this new instrument will be a high-visibility, shared resource that will expand interdisciplinary research, support teaching and improve student training opportunities, and increase access for collaborators, community and industry partners.

The activities enabled by this new SEM instrument will unlock significant new and collaborative research at ISU spanning science, engineering, and applied research fields through interdisciplinary training across a wide range of methods, materials and users. In forensic analysis and skeletal histology, it will support work on human identification, trauma timing, dental and skeletal microstructures, diet reconstruction, and taphonomic research. For our paleoecological and paleoenvironmental research team, it will fundamentally improve the analysis of microfossils, sediments, organic and inorganic residues, and evidence of human-environment interactions. In the geosciences, it will enable rock and mineral characterization and enhance geochronology, thermochronology, and studies of tectonics and landscape history. The SEM will also advance engineering and materials research, including semiconductor thin films, additive manufacturing processes, thermally altered materials, and ceramic membranes for wastewater separation. In addition to enabling these activities for ISU researchers and their community and industry partners, the PIs will use the new SEM in their teaching and public outreach, to cultivate an enthusiasm for the microscopic world in students at all levels and build their real-world analytical skills and experiences.